Short Course in Applied Optics for College Teachers

Twenty-five undergraduate teaching faculty attending this two-week short course will work with the principles and applications of optics in engineering. A mixture of lectures, demonstrations, with hands-on laboratory experiments and projects represents the core of this enhancement program. Participants will be provided with a prepared set of notes on most topics which will be covered including Fourier analysis, diffraction theory, interferometry, geometrical optics, holography, shearography, Moire' methods, optical data processing methods, nondestructive testing, and digital image processing. Participants will have intensive work experience with the latest in optical equipment and related instrumentation, much of which is computer controlled. Oakland University possesses outstanding applied optics facilities, which will enable participants to work with the modern instrumentation. In addition, the very latest equipment available will be borrowed from manufacturers and suppliers and set-up in Oakland's laboratories for participant use. A follow-up evaluation of the impact of this enhancement experience will be conducted one year later. In addition to NSF funds, participants' institutions will provide about 10% in travel costs toward the operation of the project.